Magnetoencephalography - Analysis of Very Noisy Spatial and Temporal Varying Fields

The Principal Investigator will spend the 2005-2006 year studying magnetoencephalography in the Department of Neurological Surgery at the University of Pittsburgh Medical School. The plan is (i) to attend surgical conferences, surgeries, and lectures, much as a neurological resident; (ii) to become proficient at operating the magnetoencephalograph; and (iii) to develop statistical approaches to the analysis of magnetoencephalographic data.

This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).